Planning Grant to Reform the Undergraduate Engineering Program at the Colorado School of Mines

PROPOSAL NO.: 0230699
PRINCIPAL INVESTIGATOR: Gosink, Joan
INSTITUTION NAME: Colorado School of Mines
TITLE: Planning Grant to Reform the Undergraduate Engineering Program at the Colorado School of Mines

Abstract

The Engineering Division at the Colorado School of Mines (CSM), plans to reform the Engineering program at CSM through four strategies:

1)Consolidation of fundamental engineering curriculum through the elimination of legacy
materials.Our approach to curriculum consolidation begins with the development of
three "Fundamental Systems Courses "(FSC)to replace six traditional courses.The FSC
are linked to the traditional course materials through the similarity of mathematical
structures.We will offer two pilot classes in the new format during the planning grant.
2)Development of "two-plus-one-credit " courses to replace specific three-credit courses,
with the one-credit modules featuring project-based study of emerging engineering topics
and/or computational methods used by practicing engineers.The one-credit modules will
involve mentoring by industrial colleagues.
3)Further development of new and existing five-year BS/MS programs at CSM focusing on
the changing needs of US industry for the engineering workforce.
4)Implementing effective teaching methods,including mentoring,team-based and
experience-based learning,computer simulation,and web-based reinforcement of
learning materials.

To assess the effectiveness of these revisions,we will use formative and summati e instruments,
including surveys,data collection,a new outcomes assessment instrument,and anecdotal
information obtained from faculty,students,and our Corporate Advisory Board.Trained
professional evaluators will interview students participating in the pilot sections via focus group
settings.